Formulating a plan to improve the science & technology capabilities of the South

The Southern Technology Council will hold a 2-day working meeting to review its agenda for improving the S&T capabilities of the South. Some of the issues that will be addressed are: o The extent to which regional cooperation is possible among universities and colleges and how that would improve the quality of research, and what process to use. o Means of improving the diffusion of technologies to small and medium-sized businesses; o Ways to encourage greater participation of women and minorities in scientific and technolical programs and careers. o Means for improving education for scientific and technical careers and work. o Mechanisms to assess the impacts of technology on the environment, the economy, and the people. The result will be a detailed plan and a statement of regional objectives for Science and Technology that will be presented to the Southern Growth Policies Board for review and implementation.